Emphasis Year: Nonlinear Partial Differential Equations and Their Applications

NSF Award Abstract - DMS-0204455
Mathematical Sciences: Emphasis Year: Nonlinear Partial Differential Equations and Their Applications

Abstract

0204455 Chen

This award supports participants in a workshop, held in Fall 2002, and an international conference, held in Spring 2003, at Northwestern University. The meetings, part of an emphasis year on nonlinear partial differential equations and applications, will bring together a diverse group of applied mathematicians and analysts who are able to explore connections between their fields. Discussion will be devoted to the development of new connections between nonlinear partial differential equations and such diverse areas as fluid dynamics, kinetic theory, free boundary problems, phase transition phenomena, biophysics, and modeling and computation, as well as nonlinear analysis, approximation theory, geometric measure theory, and harmonic analysis. The interdisciplinary meetings will provide excellent opportunities for communication and collaboration between senior and junior researchers.